Information Processing and Incentives in Markets and Bureaucracies

The research will extend work on information processing in organizations including (a) a model of real-time hierarchical resource allocation that distinguishes between and exhibits decentralized information processing and decentralized decisionmaking, (b) models of markets as systems for aggregating information and calculating allocations, comparing the computational efficiency of various market an bureaucratic mechanisms, (c) models of the relationships between incentive constraints and information processing constraints, (d) models of strategic interactions between autonomous organizations each of which is controlled by multiple boundedly-rational agents, and (e) to provide foundations for modeling bounded rationality and learning in dynamic settings. The primary approach to be used in this project is modeling the process of multi-agent decisionmaking in organizations as real-time decentralized control.